NER: Nanoscale Sensing and Control of Biological Processes

0608880
Beresford

This project focuses on the measurements and modeling of the electrochemical properties (current vs. voltage) of nanoscale electrodes integrated within microscale cyclic voltammetry cells in microfluidic channels. The Principal Investigator (PI) proposes to carry out these experiments in both the sensor and actuator modes. In the sensor mode, only a few nanoelectrodes will be used in order to minimize their effects on reactant concentrations. Conversely, in the actuator mode, nanoelectrode arrays will be used to produce desired reactants through localized thin layer electrolysis. The modeling component of the project will couple the solution of the non linear Poisson Boltzmann equation (PBE) with calculations of the diffusion and migration of current flow. The primary objective of the modeling studies is to predict the transient and state current flow as a function of electrode potential and boundary conditions inside the fluidic channel.